CAREER: Revealing the Connection between Invasive Species Distributions and Disturbance Events Using Satellite Remote Sensing

Despite management efforts, Southern Florida, home to Everglades National Park, is one of the global regions most severely impacted by invasive plant species. Furthermore, natural pulse disturbance events, such as hurricanes and fires, occur relatively frequently, creating an environment and conditions that are ideal for the establishment of invasive plant species. Thus, it is critical to understand the current distribution of invasive species and the history of disturbance events to accurately assess invasive risk and to inform effective conservation management decisions. Satellite remote sensing methodologies provide a cost-effective option for monitoring invasive species and disturbance history across the landscape long-term. This project will improve the efficiency of invasive plant surveys using novel satellite remote sensing technologies to better identify staging areas for treatment activities, enable the prioritization of sensitive areas, and provide better treatment cost estimates. Data and methodology from this project will be used to train the next generation of ecologists in geospatial technology to create a more competitive workforce and to create experiential learning courses to reduce barriers to participation in ecology. This project advances NSF's priorities in Biotechnology and Artificial Intelligence.

This project will characterize the dispersal, establishment, and performance of three dominant non-native plant species in Everglades National Park by harnessing time series satellite imagery. It will use the consistent revisit time of satellite imagery to quantify invasive species abundance and develop a history of pulse disturbance events. These spatially complete datasets will be leveraged to characterize the spatial and temporal dynamics of the three invaders by quantifying the predictive power of weather patterns, topography, and pulse disturbance on abundance. Using these multi-criteria datasets and collaborating with Everglades National Park staff, this project will identify priority treatment areas within a decision-making framework that reflects their institutional needs. This work will provide a methodology that enables the ecological scientific community and conservation partners to holistically observe the landscape for invasive species. In addition, it will deliver trusted information with the goal of driving invasive species management efforts aimed at increasing ecosystem resiliency.